Integrated Ethnographic and Ethnobotanical Analysis of OryzaSativa in Ifugao Culture

This award will support a distinguished cultural anthropologist, who has published widely on the ethno-ecology of the Philippines, in a study of the local knowledge of Asian rice (Oryza Sativa). The investigator will record how multiple and interlocking categorizations and evaluations of rice are structured and how such cognitive and associated behavior patterns are employed in an integrated fashion under varying environmental conditions. Aided by prior linguistic and ethnoecological research, this project will examine in detail the everyday as well as the extraordinary handling of rice both as biotic resource and as cultural artifact. The investigator will consult with colleagues at the International Rice institute on the long-term stability and change in rice germ plasms. This research is important because rice is one of the world's great food crops, and yet a detailed scientific study of the full range of knowledge and practice associated in a culture with this crop has not been done. This case will be a benchmark for comparative studies of the knowledge and uses of rice and will help planners develop programs to maximize and sustain valuable diversity.